Applications of Frontal Chromatography to Multicomponent Systems

Mass Spectrometric Tracer Pulse Chromatography will be used to investigate phase-distribution equilibria in a variety of systems, including 1) a study of the basic retention mechanisms in supercritical fluid chromatography, 2) surface-coverage programming strategies for gas-solid chromatography, 3) a fundamental investigation of "excess" and "absolute" adsorption of supercritical fluid mixtures, and 4) a thorough exploration of the effect of supercritical carbon dioxide on the phase transitions and sorption properties of polymers. The common theme of all these projects is the investigations of weak molecular interactions. The phase-distribution isotherm data will be valuable for the development of fundamental adsorption and solution theoretical models, and information on supercritical fluid chromatographic mechanisms will aid in the development of new separation schemes. %%% Fundamental studies of the phenomena which will be investigated in this project are crucial for better understanding of a wide variety of physical and chemical processes, such as chromatography, catalysis, polymer processing and extraction schemes.